RUI/ROW: Life Stage Associated Geographic Variation in an Insect

Members of the genus Culicoides are biting flies known to transmit viral diseases in some parts of the world. Dr. Carol Pappas of Peru State College in Nebraska proposes a study of the morphological variability of several species of the genus in North America. These species were chosen because of their preference for tree-hole habitats, which can be characterised in terms of height, moisture content, and ambient environment. By characterising both the morphological variation in local populations and the associated environment, Dr. Pappas will build a database that will facilitate a modern systematic treatment of the group as a whole. Data acquisition will be accomplished with a microcomputer-based image analysis system. In addition, the project will analyze the degree to which geographically peripheral or ecologically marginal populations vary, relative to central populations. The "central-peripheral variation hypothesis" is of wide interest throughout ecology and evolutionary biology. This research effort will provide a uniquely detailed and thorough case study of this phenomenon. The proposal was submitted under two NSF Cross Directorate activities: Research at Undergraduate Institutions and Research Opportunities for Women. The proposal will instruct undergraduates in the entire research process, from sampling design, through the use of a state-of-the-art morphometrics system, to the statistical analysis and interpretation of results. The project will also complete Dr. Pappas' return to research following a family-related interruption.